Prototype Learning Laboratory Extension

The National Learning Center (TNLC) incorporates informal learning with self directed, engaging materials. TNLC has produced, with a three year grant, a multimedia elementary science learning Lab that uses tabletop exhibits to create a mini-museum for students in grades four through six. The additional two years of funding will enable the project to produce and field test four new Learning Lab units and two related educational software packages. Each unit will consist of about fifteen tabletop exhibits, student workbooks and a Teacher's guide. Delta Education, Inc. will work closely with TNLC to ensure that each new unit will become commercially available and will provide teacher training. The National Learning Center is located in Washington, D.C. and is engaged in a wide range of education activities. It has an excellent record and is one of the few cultural and educational institutions in the nation that is totally integrated. This is a challenging project which addresses the goal of the Instructional Materials Program to support the development of improved instructional materials for precollege classrooms. The museum's commitment is strong, the product well defined, the staff is highly qualified and there is active participation of a publisher. An award is recommended for the National Learning Center.